Doctoral Dissertation Research: Nonresident Parenting Practices, Gender, and Adolescent Outcomes

This dissertation research will investigate how adolescents from non-intact families are affected by the involvement of the nonresident parent in their lives. The results will extend past work on the importance of financial involvement to a consideration of parental practices such as talking, arguing, and engaging in joint activities. Outcomes to be studied include academic achievement, school attendance, grades, emotional well-being, and behavioral problems. Secondary analyses of existing national surveys will be complemented by in-depth interviews with 50 adolescents and 30 parents from the local area.